Information System for Minority Graduate Recruitment and Networking

A three year pilot project will be implemented that will focus on increasing the presence of minorities in computer science. This will be done by developing and testing an information system to enhance both the recruitment of minorities for computer science graduate programs and the interaction among minorities already in computer science as graduate students or as professionals. The information system will be on-line and accessible to other universities via networks. It will contain data such as students' personal data, financial support mechanisms, contact persons, description of graduate program in computer science, personal data will be obtained from a select group of colleges/universities, including CIC (Committee on Institutional Cooperation plus the University of Chicago), along with 10 institutions with predominantly minority students. Faculty, counselors, administrators, and students from Michigan State University will serve as a pilot group for the proposed system on a vax computer system and use the database, INGRESS. Also, workshops are planned in order to obtain feedback from the project participants, including outside evaluators.